CAREER: A Framework for Modular Fast Direct Electromagnetic Simulations

Proposal Number: 0547497
Proposal Title: CAREER: A Framework for Modular Fast Direct Electromagnetic
Simulations
PI: Robert J. Adams, Electrical & Computer Engineering, University of Kentucky
Abstract
This CAREER proposal outlines an integrated research and education program designed
to provide significant advances in the tools, methods, and applications of high fidelity
electromagnetic simulations in order to meet the challenges presented by existing and
emerging technological needs.
Intellectual Merit. The state-of-the-art in time-harmonic computational
electromagnetics (CEM) will be advanced through the development and implementation
of a novel framework for modular, fast, direct electromagnetic simulations. The central
concept underlying this effort is a new, physics-based organizing principle for
simulations of electromagnetic phenomena. The organizing principle consists of
representing electromagnetic solution operators in a complete basis of localized solution
modes which satisfy global boundary conditions. These modes are referred to as LOGOS
(local-global solution) modes. The proposed research activities will develop algorithms
and tools based on the LOGOS expansions for CEM applications. The resulting
framework and algorithms will provide contributions to the field of CEM not afforded by
existing technologies.
Broader Impact. The simulation algorithms resulting from this research effort are
expected to impact many areas of computational physics outside the EM field. To further
broaden the educational and societal impacts of this effort, local resources will be used to
attract undergraduate and graduate students from underrepresented populations. These
students will in turn be asked to participate in outreach activities to regional high schools,
thus providing role models to students in underrepresented STEM populations.